REU Site: Cybersecurity Research of Unmanned Aerial Vehicles

This funding institutes a Research Experience for Undergraduates (REU) Site at Embry-Riddle Aeronautical University (ERAU). Each year, over the summer, ten highly motivated undergraduates will conduct an intense 10-week Unmanned Aerial Vehicles (UAV) cybersecurity research program complemented by professional development activities that prepare them for future cybersecurity careers and graduate schools. Students will research existing UAV cyber threats and mitigation strategies and explore new techniques and algorithms to safeguard UAV systems. The REU program will focus on providing unparalleled opportunities for undergraduate students, especially those from underrepresented and minority groups and from institutions with limited resources, by engaging them in real-world cybersecurity research of UAVs. Through small-group, high-quality mentoring practices, the REU training will not only aid in enhancing the safety and security of UAVs in personal and commercial applications but will also build research confidence among REU participants.

The overall objective of this project is to immerse undergraduate students in research-intensive training in the cybersecurity field and encourage them to think creatively and independently through hands-on project activities. REU participants will be engaged in faculty-led projects such as UAV cyber-attacks, UAV cyber defense mechanisms, privacy protection methods for UAV communications, and Physical Layer-based cybersecurity. They will participate in activities that range from literature reviews, technical seminars, and workshops to the preparation, presentation, and dissemination of research findings. The three major goals of the REU Site are: (1) to expose undergraduate students to a variety of cybersecurity projects that are bound to build the interest, skills, and knowledge necessary to pursue cybersecurity careers; (2) to increase the number of underrepresented undergraduates in cybersecurity and STEM fields through diversity recruitment emphasis, and (3) to provide undergraduate students with strong professional skills for their future careers and graduate schools. The REU Site will leverage ERAUs’ state-of-the-art facilities, research labs, and faculty expertise to promote interest in cybersecurity and develop research skills of the undergraduate students which, in turn, will contribute towards cybersecurity education, training, and workforce development.